The Molecular Systematics of the Tribe Anthemidae (Asteraceae)

The evolutionary and systematic relationships of the Tribe Anthemideae (Asteraceae, sunflower family) will be examined with molecular techniques. Using representative species, variation in the chloroplast genome will be assessed using : 1) comparative restriction site mapping, and 2) sequencing of the gene ORFk (open reading frame k). The data will be analyzed phylogenetically using available software packages (including PAUP, Phylogenetic Analyses Using Parsimony; PHYLIP, Phylogenetic Inference Package; among others). This research will test hypotheses of evolutionary relationships, and will provide an independent assessment of character evolution (including morphology, breeding systems, and chromosome numbers) in an important group of flowering plants. The Anthemideae is an important tribe in the Asteraceae, being the fifth largest tribe in terms of number of genera, and the seventh largest in terms of number of species. It is important economically with numerous species used for sources of insecticides, malaria medicines, cultivated plants, and herbs. And it is important ecologically with sagebrush a dominant species in the Great Basin of North America. Evolutionary relationships of this important tribe remain obscure, with extensive diversity and convergence being contributing factors. Additionally, the sunflower family is one of the largest, most diverse, and successful families of flowering plants, and has long provided a model for systematic studies at all taxonomic levels. This tradition has continued with pioneering studies of molecular systematics using this family. This study will provide a greater understanding of the evolutionary and systematic relationships in an important family and tribe of flowering plants.